PPD/R&D: Producing and Evaluating Random Access Audio Tours for Visually Impaired Visitors to Science - Technology Centers

The New York Hall of Science will conduct research to determine the effectiveness of random-access audio technology as a means of improving access to science-technology center exhibitions for visually-impaired visitors. The project will use formative evaluation techniques to create random access tours of two major exhibitions at the New York Hall of Science: Sound Sensations and Seeing the Light. The project will use a recently developed technology, the random-access audio player, which offers the promise of improving the effectiveness of learning for all visitors, including the visually-impaired, at science-technology center interactive exhibits. This project builds upon earlier work to develop and evaluate audio tours for hands-on science museums. The exhibitions selected for this project address the technology of audio reproduction (Sound Sensations) and the physiology and psychology of visual perception (Seeing the Light). The project goal is to extend the benefits of these substantive informal science experiences to visually impaired visitors. Seeing the Light, originally created by the Exploratorium in San Francisco, is one of the most widely replicated exhibitions in the world, making the findings of the project directly relevant to many museums. The project team will use control and experimental groups of visually impaired visitors to evaluate the effectiveness of these tours in increasing the impact of the exhibits for these individuals. The goal of the currently funded project is to determine whether audio tours work for any. The initial findings from the earlier research were encouraging indicating that audio tours are beneficial for audiences in hands-on science museums. The new research will extend the prior work in two ways: (1) It will enable the museum staff to develop and test an audio tour which is designed to support the special requirements of visually-impaired audiences. (2) It will enable the project team to ascertain the degree to which an audio tour can benefit from the principles of universal design -- how the specific requirements of a visually impaired audience might be incorporated in the design of an audio tour for all audiences. Both general findings and tour components from this research could be used later by over 250 science-technology centers in the United States. The project will conclude with a report to the field on the production, use, cost, and impact of this technology on the target audience.